Southeast Conference on Applied Mathematics to be held November 9-11, 2001 in Raleigh, North Carolina

0107812
Gremaud

This award will support the Southeast Conference on Applied
Mathematics (SECAM). The conference will focus on four overlapping
themes: i) Mathematical Methods for Multiscale Problems, ii) Industrial
Mathematics, iii) Mathematical and Computational Biology, and iv)
Material Science. Multiscaled models are found in a wide range of
applications and pose difficulties for both mathematical and numerical
analysis. What is, for instance, the effect of the fine scale behavior on the
solutions? How well should the fine scales be resolved to obtain accurate
information? etc. The problems to be discussed in Industrial Mathematics
come from areas such as microelectronic, chemical manufacturing and
material processing, and will focus on the process of technology transfer.
The extreme complexity of the problems studied in Mathematical Biology
precludes a traditional "pencil and paper" approach and calls rather for an
integrated approach between mathematical modeling and computer
analyses. This trend has been accelerated by the development of
productive partnerships between experimentalists, theoreticians and
mathematicians with similar interests but very different areas of expertise.
Successful examples will be discussed. The study of emerging
applications in the Material Sciences such as granular flows, thin films or
smart materials has led to the discovery of new kind of instabilities and
interface propagation problems. This session will aim at facilitating the
migration of the most successful analysis and computational techniques
from specific areas of Material Science to other problems.

The conference aims at accomplishing three main goals: Interaction,
Showcase, and New Activities. Interaction: The conference will provide a
forum and gathering place for applied mathematicians in the Southeast. It
will reach out to several groups that are underrepresented in traditional
meetings. First, many successful collaborations have been established
between applied mathematicians and scientists from local companies and
governmental laboratories in technological parks such as Research
Triangle Park, NC. Several industrial partners have been invited to give
presentations. Second, there are emerging centers of excellence within the
many local colleges and historically black institutions. Speakers and
students from such institution have been invited to contribute to the
success of the conference. Showcase: The high level of activity in Applied
and Industrial Mathematics is not always accurately represented through
the usual channels of communication. Indeed, by its very nature, a sizable
part of the work done in Industrial Mathematics gets to be published in
specialized engineering type journals, reaching only a small portion of the
Applied Mathematics community. Conferences such as this one can play a
fundamental role in unifying and improving approaches that may be
similar in many aspects but are used in very distinct applications. Special
care has been taken to provide younger scientists and graduate students
with the opportunity to present their work and take an active part in the
conference. New activities: The audience is expected to span a whole
spectrum of expertise, experience and background, from recognized
researchers in academia to engineers from the private sector and national
research laboratories to students and people with limited research
experience in Applied Mathematics. It is expected that not only will the
conference give an accurate idea of significant ongoing and future trends
in Applied Mathematics, but also will lead to new collaborations and
applications.